Improving Symbolic Analysis of Restructuring Compilers

The proposed research investigates new methods for symbolic analysis to
improve various restructuring compiler optimizations. A new algebra on
functions is investigated to manipulate, simplify, and derive normal forms of
scalar functions and (generalized) induction variables in multi-dimensional
loops. The derivation of normal forms for intermediate program constructs
enables reasoning about the semantics of a program under analysis. This is
extremely useful to improve various compiler optimizations to effectively deal
with symbolic expressions in real-world applications. More specifically, the
proposed research aims to improve symbolic analysis methods such as
generalized induction variable recognition, linear and non-linear data
dependence analysis, value range analysis, global value propagation, and
counting the number of solutions to systems of constraints. The effectiveness
of parallelizing compilers depends heavily on the accuracy of these methods.
The research will result in the ability of compilers to more effectively
handle symbolic expressions and constraints. Current methods are not always
effective, resulting in considerable performance losses caused by worst-case
assumptions or when program analysis has to be performed at execution time.